Insect Survey of a Megadiverse Country: Colombia

DEB-9972024
Sharkey

This project is designed to survey the insect fauna-primarily Diptera, Hymenoptera, Hemiptera, and Coleoptera--of eight of Columbia's National Parks and Wildlife Sanctuaries. Samples will be collected by local park naturalists and sorted in country by local experts. The timing is critical since Colombia is experiencing rapid forest loss and difficult social problems related to population growth, political instability, and illegal drug trade. This project is strongly interactive with the von Humboldt Institute, and the Colombian Ministry of National Parks. Field samples will be collected by local park naturalists and volunteers, and sorted in country by trained parataxonomists. Research products will include checklists, interactive keys, and fully accessible databases.